Molecular Neurobiology of Drosophila Conference; Cold Spring Harbor, New York; September 25-29, 1991

A conference will be held at Cold Spring Harbor on the molecular neurobiology of drosophila. Approximately 150 international scientists will participate and support will be available to attract young scientists. Topics to be discussed cover a number of areas in neurobiology including neuronal determination, ion channels, neurotransmitter systems, sensory transduction and complex behavior.